CAREER: Direct Characterization of Local Chemical Order in Complex Concentrated Alloys and its Impact on Mechanical Properties

NON-TECHNICAL SUMMARY

Metal alloys are essential materials in modern society, from structural components in buildings and vehicles to advanced applications in aerospace and energy systems. Recently, a new class of alloys called complex concentrated alloys (CCAs) has emerged, consisting of multiple elements mixed in roughly equal amounts rather than following the traditional approach of one dominant element with minor additions. These materials show exceptional strength and toughness, particularly at extreme temperatures, but scientists do not fully understand why. This research investigates a key feature called local chemical order (LCO), the preferential arrangement of different atoms at very small scales, which is believed to control these remarkable properties. This research project is developing advanced experimental techniques using powerful X-ray and neutron beams, combined with electron microscopy, to directly observe and measure LCO in two model alloy systems. By systematically creating samples with different degrees of ordering and testing their mechanical properties, this work is establishing clear connections between atomic arrangement and material performance. This knowledge enables the design of stronger and tougher alloys for critical applications including national defense, energy infrastructure, and transportation. Educationally, the project is training graduate and undergraduate students in cutting-edge materials characterization methods for the purposes of contributing to the future workforce needed for advanced manufacturing and materials innovation. Additionally, the research team is creating freely accessible video tutorials and interactive learning tools for electron microscopy, lowering barriers for students and researchers nationwide, to master this important characterization technique. These educational resources are being disseminated through online platforms and partnerships with national laboratories and professional societies for the benefit of the broader scientific community.

TECHNICAL SUMMARY

This research is establishing a comprehensive experimental framework for quantitatively characterizing local chemical order (LCO) in complex concentrated alloys (CCAs) while elucidating its influence on mechanical properties. Unlike conventional alloys based on a single principal element, CCAs consist of multiple elements in significant concentrations, and their properties are hypothesized to be profoundly affected by short-range correlations between atomic species. This research project focuses on two quaternary model systems: face-centered cubic CrCoNiV and body-centered cubic NbTaTiHf. This research plan integrates resonant X-ray diffuse scattering at synchrotron facilities, neutron diffuse scattering at the spallation neutron source, and advanced transmission electron microscopy techniques including four-dimensional scanning transmission electron microscopy (4D-STEM). This multi-probe approach is leveraging complementary element-specific contrasts to separate contributions from LCO and local lattice distortion. The work is systematically characterizing LCO evolution through controlled thermomechanical processing, determining characteristic length scales of ordering, and employing three-dimensional differential pair distribution function analysis to quantitatively extract Warren-Cowley parameters describing atomic correlations. Mechanical testing at cryogenic and room temperatures on samples with varying degrees of LCO is directly correlating atomic-scale structure with deformation mechanisms including twinning-induced plasticity in face-centered cubic alloys and kink band formation in body-centered cubic systems. The methodologies being developed are establishing new standards for measuring and utilizing LCO in materials design, with applications across varied structural alloys for extreme environments. Educational activities are also creating comprehensive electron microscopy training resources including step-by-step video tutorials and interactive web-based modules with a goal of significantly reducing barriers for student training while strengthening national research infrastructure in advanced characterization.